Mechanism of Protein Biosynthesis in Animal Mitochondria

The overall objective of the proposed research is to investigate the initiation of protein biosynthesis in animal mitochondria. This process is unique in the animal mitochondrial system since initiation occurs at or within few nucleotides of the 5' end of the mRNA. One animal mitochondrial translational initiation factor has recently been purified. This factor (IF-2mt) is responsible for binding the initiator tRNA to ribosomes in response to the AUG codon. In the present application, additional factors that are required for the assembly of the functional initiation complex on the mitochondrial ribosome will be investigated. The components in addition to IF-2mt, required for the binding of the initiator tRNA to ribosomes in the presence of a natural mRNA will be identified. These factors will then be purified, characterized and their roles in the initiation process investigated. Studies will be carried out to determine how the 5'end of the mRNA is recognized as the initiation signal in the animal mitochondrial system. The role of proteins that interact with mitochondrial mRNAs and 28 S ribosomal subunits will be explored and the importance of mitochondrial membranes or membrane components will be analyzed. %%% Historically a tremendous amount of effort has been directed toward understanding the biochemistry and molecular biology of mitochondria. This organelle is of prime importance in energy metabolism and cytoplasmic inheritance in eukarytic cells. Little is known about mitochondrial protein synthesis. This proposal addresses the regulation of protein biosynthesis at the level of initiation.